RCMS:Research Careers for Minority Scholars

The goals of the Research Career for Minority Scholars (RCMS) program are to attract and retain minority students who have the potential to do above average work in the fields of chemistry and physics, and to give these students the motivation, training and opportunity to continue their studies in chemistry and physics at the advanced degree level. To meet these goals, a recruitment, training, mentoring and monitoring program will be established. The Program Director (PD) will have overall responsibility for meeting the goals of the program with the assistance of the participating faculty.